AI Systems in Management, Public Safety, and Research

This project researches the translation of surveillance capacities of AI systems into higher education for university management, public safety, and research. It investigates how institutions of higher education are using and adapting AI systems. Results of this study inform the understanding of scholars, stakeholders, decision makers, and the public, and contextualize how universities position themselves with respect to AI developments.

This project uses mixed methods to study surveillance functions of AI systems in learning management, monitoring, productivity, campus safety, health and wellness, and research. The study involves analysis of research documents and interviews with university stakeholders and investigates the societal context of this emerging AI system for higher education.